The geometry of partial differential equations

Abstract

Award: DMS-0604195
Principal Investigator: Robert L. Bryant

Bryant will apply techniques of exterior differential systems and
differential invariants to problems of current interest in
geometry, economics, and physics. In soliton flows, two problems
will be studied: Characterizing the complete Ricci solitons in
terms of extra equations that they must satisfy, such as having
higher multiplicity of eigenvalues of the Ricci tensor or its
(symmetrized) covariant derivatives and exploring a flow for
CR-nondegenerate hypersurfaces in complex manifolds with
trivialized canonical bundle. In minimal submanifolds, Bryant
will work on constructing and understanding calibrated
submanifolds in Riemannian manifolds of special holonomy. In
almost-complex geometry, Bryant will develop a theory of almost
complex 6-manifolds by studying the functionals on the space of
almost complex structures on a given 6-manifold and the
`quasi-integrable' class of almost complex structures, which has
many of the good bundle-theoretic properties of the integrable
case but is considerably more flexible. It has a good theory of
Hermitian-Yang-Mills connections, at least locally, and one may
hope to define, study, and apply the associated moduli spaces.
Bryant will also study the minimizing properties of
pseudo-holomorphic curves in almost complex manifolds. In
Finsler geometry, Bryant will develop the theory of Finsler
manifolds with constant flag curvature, constructing new
examples, understanding the properties of their geodesic flows,
and pursuing relations with twistor theory and exotic holonomy.
In smaller projects, Bryant will continue to study the problem of
Hessian representability of metrics and its close relations with
integrable systems and will also begin developing and
generalizing the convex Darboux theory introduced by Ekeland and
Nirenberg for applications to econometric models. (The methods
of exterior differential systems are particularly suited to this
latter problem and Bryant expects some interesting interaction
with econometricians along the way.)

Bryant will continue to develop geometric approaches to problems
arising in analysis, physics, economics, and biology. Many of
the important advances in the use of mathematics in the sciences
have depended on developing a geometric understanding of those
problems, i.e., an understanding that focusses on intrinsic
aspects that are not tied to arbitrarily chosen coordinates.
(The most famous example of this is Einstein's general theory of
relativity, which he found by re-interpreting gravitation as
`curvature of space', rather than as a force whose complicated
expression in observer coordinates was largely irrelevant. More
recently, the development of string theory and M-theory has also
resulted in geometric formulations of physics.) Geometric
formulations often lead to degeneracies in the mathematics that
can be treated by differential systems and their invariants
(nonstandard tools that Bryant and his coworkers are
systematically developing), and Bryant is exploring applications
of these ideas to new areas.